SGER: Isolation and Characterization of Dissolved Organic Matter in Katrina Flood Waters in New Orleans

0553112 Cook The research put forward in this proposal will allow for a procedure to be established for the isolation of dissolved organic matter (DOM) from urban flood waters (UFWs). The isolation of DOM, and its subsequent characterization, will allow for a baseline to be established. From this baseline insight into the biogeochemistry of DOM decomposition within UFWs will be possible. Subsequent proposal of model systems should allow to further understand if and how the removal of DOM facilitates faster recovery of flooded areas. In addition, the isolated DOM will be used to study the fate and transport of organic and inorganic pollutants present within UFWs. Also, the isolated DOM will be used for microbial growth studies to understand microbial population in UFWs. The data provided from these studies will allow for modeling of the environmental impacts of UFWs, and developing strategies to reduce the microbial population in UFWs by controlling the DOM in such waters. In addition, the isolated sample will be made available to other researchers across the Nation and around the world who have scientific interests in this topic.